Mathematical Sciences: Wavelets and Applications

The research entails investigations into wavelets in 2-dimensions which are free of direction bias, construction of wavelets on compact subsets via mapping properties, analysis of Burger's equation and applications of wavelet theory to ill-posed problems arising in the theory of integral equations and statistical inverse problems.